Mathematical Sciences: Structure of Operator Algebras

9322675 Jones Jones will conduct research over broad areas in analysis, algebra, topology and mathematical physics, ranging from work in group cohomology inspired by an invariant due to Connes on von Neumann algebras to the statistics of fields in low dimensional(conformal and otherwise) field theory. The topological implications are in knot theory and 3-manifold topology. The unifying theme is that of a subfactor which is ultimately related to all these topics. Endomorphisms onto subfactors are also playing an increasing role. The general area of the mathematics in this project has its basis in the mathematical foundations of quantum mechanics. In quantum mechanics one deals with non-commutative objects that can be analyzed by considering their algebraic structure as a mathematical construct called a von Neumann algebra. These abstract objects have a surprising variety of applications. In this project, invariants associated with these algebras will be investigated with an eye towards applications in knot theory and quantum statistics. ***